University-Industry Research Center in Pharmaceutical/ Chemical Sciences at the University of Puerto Rico

The subject of this proposal is a University/Industry Research Center in Pharmaceutical/Chemical Sciences at the University of Puerto Rico. An operational grant to set up and operate the Center on the base of the University/Industry Research Program in Pharmaceutical/Chemical Science is being requested. The planning work started in 1983 with University funds and was successfully accomplished with the aid of NSF grant no. ISI 84- 21088, received in April 1985, by starting the University/Industry Research Program in Pharmaceutical/Chemical Sciences at the University of Puerto Rico in November 1985. The proposed Center's main operational characteristics can be summarized as follows: Participants: Puerto Rico pharmaceutical/chemical industry (twenty-one pharmaceutical/chemical companies), (2) the University of Puerto Rico, (3) the Puerto Rico Community Foundation (through grant No. PRCF 1-85 (C) received in September 1985), (4) the National Science Foundation (through the operational grant which is being requested). Industrial Focus of the Center: Most major U.S. drug and pharmaceutical manufacturers have production facilities in Puerto Rico. Often pharmaceutical and chemical processes take place within the same company. There are about 110 plans in operation. Pharmaceutical/chemical plants in Puerto Rico are usually state- of-the-art since they were built during the last 12-15 years. Practically the whole spectrum of drugs and pharmaceuticals is produced in Puerto Rico. The creation of the University/Industry Research Center in Pharmaceutical/Chemical Sciences at the University of Puerto Rico will fill the existing vacuum in the relationship between the universities and the pharmaceutical/chemical industry in Puerto Rico in basic and applied research, education and training. The center will offer an effective mechanism through which assistance can be sought from the industry to the Puerto Rico University System. Twenty-one companies are supporting the setting-up of the University/Industry Research Center in Pharmaceutical/Chemical Sciences, and sixteen are participating actively in the University/Industry Research Committee.